A Computer Laboratory for Learning Algebra, Trigonometry andCalculus

Students in college algebra, trigonometry, and calculus are experimenting with a new computerized learning environment based on a software package called MATHPERT, which is running on computers using the MS-DOS operating system. The system guides and helps students produce solutions to problems and decides how much help is needed based on the student's previous performance. The institution will contribute an amount equal to the award.//